Fundamental Studies of the Raman Amplifier

The research program is directed toward fundamental studies of the Raman amplifier. Soliton formation, self-similar pulses, non-orthogonal modes and quantum noise will be examined with the goal of studying the universal nature of these phenomena in all optical amplifiers.